RESEARCH IN ELEMENTARY PARTICLE PHYSICS

A program of research in theoretical elementary particle physics will
include the study of the relation between quantum field theory in
three-dimensional space on the one hand, and gravity and supergravity in
higher dimensions on the other hand. Quantum field theory describes such
phenomena as the strong nuclear forces. Supergravity is a limiting case of
the string theory that may unify all of the forces of nature, including
gravity. It has been shown that the connection between quantum field
theory and gravity gives quantitative information about the properties of
field theory when forces between particles are very strong. This strong -
force information is required for many applications and is generally not
accessible by other methods.